IDEA: Internet Differential Equations Activities

The NSF-funded IDEA project has successfully delivered differential equations in instructional materials over the Internet to students and their instructors throughout the world. It encompasses classroom exercises, Java applets to illustrate principles of differential equations, Java code generation facilities, and Microsoft Windows based differential equations solving software. The current project is intended to broaden and deepen the scope of IDEA. It will provide for additional software to solve boundary value problems and partial differential equations, and to illustrate the solutions graphically. The project will include continued development of additional exercises from fields as diverse as mathematics, chemistry, agriculture, and economics. In addition, there will be an effort to evaluate the usefulness of the realistic problems and technological tools associated with the project in the classroom.